National Laboratory for Applied Network Research (NLANR)

The agreement provides for the National Laboratory for Applied Networking Research (NLANR)s Measurement and Operations Analysis Team (MOAT), led by Principal Investigator Hans-Werner Braun, to continue the NLANR research activities that have been ongoing at UCSD since 1995. In addition to measuring and analyzing vBNS traffic data, NLANR/MOAT will promote the continued development, testing and deployment of publicly-available measurement and analysis tools and techniques. NLANR/MOAT will facilitate the early identification and analisis of performance (both network-centric and applications-centric) trends and problems (related to the VBNS and interconnected High Performance networks and institutions). This will be accomplished by deploying flow monitors and conducting performance measurements on HPC connections to the vBNS, on select vBNS partner nodes, and at other key sites (particularly vBNS aggregation points, such as GigaPOPs and NGIXen). Resulting data and analysis on Internet traffic performance and traffic flows will then be made available to the research community and the general public.